Advanced Undergraduate and Graduate Student Scholarship and Travel Grants for the 2008 Grace Hopper Celebration of Women in Computing; October 1-4, 2008; Denver, CO

This CISE Special Project award provides funding for approximately eighty undergraduate and graduate students to attend the 2008 Grace Hopper Celebration of Women in Computing. The eighth Grace Hopper Celebration will be held on October 1-4, 2008 in Colorado. This special project is funded by the CISE Broadening Participation in Computing Program.

The intellectual merit of this project lies in the access to the many technical presentations and researchers at the conference. In addition, students have the opportunity to participate in poster sessions and receive feedback from discipline specialists. The Grace Hopper Celebration provides a unique, supportive environment for intellectual discourse that is particularly appealing for women and other under-represented groups.

The broader impacts of this project deal with providing resources and support to students that will help them persist in their programs as well as access to avenues to continue through the IT workforce pipeline. Students who attend the Grace Hopper Celebration will be exposed to women who are creating, improving, and studying computer and information technologies who serve as role models and mentors. This travel scholarship support provides a unique opportunity to directly affect the careers of future computer scientists and increase the representation of women in computing.